Postdoctoral Research Fellowship in Biological Informatics for FY 1999

This action funds an NSF Research Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of metabolic biochemistry and is entitled "A computer program to predict the biodegradation of environmental pollutants." This project concerns the environmental breakdown of pollutants by microbial action, biodegradation. An artificially intelligent system capable of predicting the biodegradation pathways of novel compounds will be developed by combining two existing databases. Automated learning techniques to populate a knowledge base with biodegradation knowledge will be devised. This will be used in an expert system to predict multiple potential biodegradation pathways.